Undergraduate Faculty Enhancement in Mathematics

The teaching of undergraduate geometry courses for future school teachers will be enriched by organizing the conducting three week-long summer workshops for college and university faculty in which they will: Goal 1. experience new teaching strategies and techniques. Goal 2. experience and/or see examples of non-test based assessment schemes . Goal 3. Learn about and observe these and other examples of pedagogical techniques that have been successful in encouraging women and underrepresented minorities. Goal 4. Learn new subject matter and experience new instructional materials being produced by the Cornell Undergraduate Geometry Project. Goal 5. have the opportunity to interact and share with colleagues and experts who have common interests in the teaching of mathematics to future school teachers. Goal 6. Learn about and share ideas concerning the recent recommendations, guidelines and standards. Goal 7. be committed to participate after the workshop in several of the following follow-up activities. Goal 8. identify, encourage, and train regional coordinators.